Synergistic Electronic Commerce (SynreCom) Partnership for Innovation

0090959
Sera

This award is to Texas A&M University to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners for this award include Texas A&M Engineering Extension Service; Edgewood ISD, San Antonio School District; Our Lady of the Lake University; TEKSA Innovations Corporation; San Antonio Day Care Providers.

Proposed Activities
The award supports the following activities: formation of minority-lead entrepreneurial teams to form and assist small businesses; provide e-commerce capability for small business; job training (computer training) for at-risk students; provide business management tools, including incubation support, to small minority-owned small businesses.

Proposed Innovation
The innovation goals of this award include formation of minority-led entrepreneurial teams to assist formation and growth of small business in the San Antonio area; enablement of economic growth by providing e-commerce capability of small businesses, especially minority owned businesses; providing incubator services where needed; providing workforce training for at-risk under-represented groups and providing job opportunities for them in small companies.

Potential Economic Impact
The potential economic benefits from this award includes a wide range of outcomes, such as job training and job placement for under-represented, at-risk of poverty groups by creation of new business and new jobs.

Potential Societal Impact
The potential benefits to society include education and training for at-risk under-represented minorities; creation of business opportunities for minority-owned small businesses; creation of new employment opportunities for minorities.